SENSORS: Soft Tamper-Proofing with Program Integrity Verification in Wireless Sensor Networks

Shin abstract

Small low-cost sensor devices, each equipped with limited resources,
are networked and used for various critical applications.
The nature of these applications may require the underlying sensor
network to be secure even though it is usually deployed in
a harsh, sometimes hostile, and unsupervised environment,
and hence, is subject to capture, reverse-engineering
and manipulation.
Existing tamper resistance techniques are either hardware-based or intended for
environments with sufficient computation and communication
resources, but they cannot be used for low-cost (thus resource-limited)
sensor devices.

This project focuses on the development and evaluation of
a Program-Integrity Verification (PIV) protocol that intermittently
verifies integrity of the program code of a sensor device, e.g., whenever
it joins a network or has experienced a long service blockage.
The PIV protocol augments sensor devices to make them
usable for applications that require high-level security.
PIV uses a randomized hash function,
by which the algorithm for hash computation on the program code
can be randomly generated whenever the code needs to be verified.
By applying this algorithm, the PIV protocol will offer protection
against manipulation/reverse-engineering/reprogramming of sensors;
provide software-based protection without requiring tamper-resistant hardware;
exploit infrequent triggering of verification, thereby not
stressing or interfering with normal sensor functions;
and assure cryptographic security. The project consists of the following four
closely-related tasks, Program-Integrity Verification, Key Management,
Adaptive Intrusion Detection, and Experimentation and Validation.
The goal of the project is the fundamental
advancement of software-based tamper-resistance techniques.
Broader impact is epxected in emerging
sensor networks that will play key roles in safety-critical
and homeland security applications such as surveillance
of the physical infrastructure, including buildings and bridges,
transportation systems, water supply systems, and power generation
and distribution systems.